EXP-SA: Detection of Explosives via Kinetic Energy Release

0730718
Glish
This project is a mass spectrometry approach where there is screening by kinetic energy release when an ionized molecule dissociates. Mass spectra will only be obtained when the level of energy released indicates the probability of an explosive material. The very significant advantage is that no prior knowledge of suspected target molecule is required. Any highly energetic compound will be detected. This is a novel approach to explosive detection.